Congestion Control and Fault Tolerance in Broadband Networks

The focus of this research is on the formulation and development ofnovel, effective techniques for distributed, network-wide resource allocation and connection management in broadband integrated services digital networks (BISDN) within the framework of fault-tolerant operation. The focus of these techniques is to optimize the utilization of network switch and transmission resources in meeting user demand and service quality requirements, especially under heavy usage and/or operation under network faults. In addition, the focus includes development of alternative, novel fault tolerant switch architectures, network topologies and transmission facilities. Relative to other research on resource allocation and connection management for BISDN, the approach here is unique in that fault tolerance is incorporated not only within the resource allocation and connection management algorithms, but also into the network switches, topography and transmission capabilities.